SGER: A Binational Multi-disciplinary Expedition to Isla Guadalupe, Baja California

Ezcurra
0074462

This project will survey the current status of the flora and fauna of Isla Guadalupe, Mexico, a national wildlife reservation established in 1922. Isla Guadalupe has a 10 million year history separated from the North American continent, and represents one of the most pristine habitats of the coastal biota of the Eastern Tropical Pacific. Researchers will investigate the status of land and seabird species, insect and arthropod populations, survey plants, search for secretive reptiles and amphibians, and inventory the status and abundance of threatened species, including several thought to be extinct. The research team will include US and Mexican researchers, and comprise experts representing vascular and non-vascular plants, insects and other invertebrates, fish, mammals, and birds.